MANEUVER: Manufacturing Education Using Virtual Environment Resources

Project MANEUVER (Manufacturing Education Using Virtual Environment Resources) is developing an affordable virtual reality (VR) framework to address the imminent demand for well-trained digital manufacturing (DM) technicians. Over half of the 3.5 million required manufacturing positions in the US are expected to go unfilled due to a "skills gap". Employment projections show a decline in conventional manufacturing jobs with marked growth in DM jobs. This VR instructional framework, targeted at two and four year programs, will not only advance the field of DM, but will also strengthen education by remedying the lack of clearly defined career/educational pathway(s) for entry-level DM technicians.

MANEUVER is developing an innovative multi-modal VR framework for DM instruction. This framework decouples the 3D DM database from functionalities, thus giving the instructional designer access through immersive, augmented, and desktop VR. Instead of pairing functionalities with the VR database, which prevents access by other modes, the decoupled approach allows for mode-independent approach, facilitating affordable access and broader implementation. The resultant curricular modules can be replicated for use on multiple machines without additional costs. During manufacturing process training, VR tools serve as a viable alternative offering a cost and material-efficient solution. Industry standard software and hardware is being used to develop and deliver advanced DM exercises for instructional and training purposes. Using a "train-the-trainers" approach, a replicable faculty development model is being developed for secondary and post-secondary institutions. By addressing regional and national entry-level workforce needs, the project benefits society and contributes to national economic progress and prosperity.